Dissertation Research: Fitness Consequences of Resistance to Parasitism in a Drosophila-Parasitoid System

Huey
9801688

Parasites cause tremendous damage to plant and animal populations. Many organisms have evolved partial resistance (immunity) to parasites. However, little is known of the physiological costs and evolutionary dynamics of maintaining such immunity. This project will explore the costs that the fruit fly (Drosophila melanogaster) experiences in maintaining partial immunity against the parasitic wasp (Asobara tabida). The research will measure fitness costs of flies that survive the parasite versus those that were unparasitized.

This is an ideal system for studying immunity because of the wealth of prior information on the genetics and development of fruit flies. Moreover, wasp parasites are often used in biocontrol programs for noxious insects; and understanding the nature of those defenses against wasp parasites may enable agricultural scientists to "engineer" parasites that better evade host immune systems.